Travel support for the OSS 2010 Doctoral Consortium

This award supports a Doctoral Consortium (DC) at the 2010 Conference on Open Source Systems (OSS 2010) to be held May 30, 2010 at Notre Dame. The OSS 2010 conference will bring together a wide range of researchers from the fields of software engineering, information systems, social science, and information science. This conference is a critical link between researchers who study the more formal practices of software engineering and those who study the often less formal practices of the Open Source Software movement. The focus of the OSS 2010 DC is the intellectual content of the participants' doctoral dissertations. These dissertations represent state-of-the-art research in the study and development of complex software systems. Established faculty will participate in the DC as mentors to provide critical feedback on the participants' research. Participation in the DC will develop an intellectual community in a critically important research area. Organizers will work to cultivate diverse participation on several dimensions (nationality, scientific discipline, gender, institutional affiliation, and under-represented status).